Automated Screening System Using Cellular Electrodes

Screening and isolation of microorganisms accounts for much of the efforts in industrial microbiology. For example, screening for enzyme inhibitors of microbial origin has recently led to more than 50 novel compounds, some of which are in clinical use or clinical trial for the treatment of hypertension, rapid screening technique could speed up the identification of novel and new biological compounds. The overall objective of this proposal is to develop an automated cellular electrode system for screening and monitoring purposes. Construction of a working cellular electrode system using a disk of immobilized mammalian cells attached to an oxygen electrode is an immediate objective of this proposal. Two such electrodes with different cell lines can possibly be used to detect a substance toxic to one of the cell lines by differential oxygen sensing measurements. Phase I research will focus on developing magnetically sensitized immobilized cellular disks, and then magnetically coupling these disks to an appropriate electrode. If these initial studies look encouraging, further research in engineering design and software development of the screening system is planned for phase II. The PIs are considered to be very capable of carrying out the proposed research project and I recommend funding according to the budget submitted with this proposal.